Noncommutative Projective Algebraic Geometry

Smith, 9701578 Abstract. The proposed research lies at the junction of non-commutative ring theory and algebraic geometry. The most abstract setting for the subject is to view a pair, consisting of an abelian category and a distinguished object in it, as the category of sheaves on some imaginary non-commutative space and the structure sheaf of the space. Such a pair is called a scheme. The category of modules over a ring together with the ring itself is a basic example. Much of the project involves the examination of special examples with the goal of getting a better understanding of the appropriate analogues of standard geometric notions such as subschemes, open, closed, singular, etc. Particular attention will be paid to non-commutative analogues of projective spaces; included in this are the Sklyanin algebras, which first arose from some problems in physics. It is also proposed to examine several homological properties of non-commutative rings, such as Auslander regularity, the Koszul property, and the Cohen-Macaulay property. The basic problem addressed by non-commutative ring theory is to understand the solutions in (possibly infinite) matrices to systems of polynomial equations in non-commuting variables. Non-commutative algebraic geometry aims to develop a more geometric approach to such a problem, essentially by viewing the solutions as geometric objects.